CAREER: Decentralizing Trust in Open Distributed Systems

Distributed systems that allow any user to enroll his node as a participant
must resolve two main challenges to achieve reliability: selecting trustworthy
participants, and detecting and containing the damage of deviant nodes. This
research addresses these challenges by (a) presenting a new system
architecture, F2F, that incorporates decentralized trust relationships among
users in determining trustworthy nodes and (b) devising new techniques to
detect and contain faults of misbehaving nodes in the context of concrete
applications using this new architecture.

This research demonstrates the usefulness of F2F through the design and
implementation of two case-study systems: cooperative backup and censorship
circumvention. Friendstore provides inexpensive and reliable backup by storing
each user's data on a subset of trusted neighbors. Such an architecture allows
Friendstore to use less expensive technical means to detect and recover from
faults but makes it harder to fully utilize storage resources. This project
addresses this challenge using coding techniques that allow a node to
efficiently provide data redundancy for multiple neighbors simultaneously. The
second case study system, Kaleidoscope, helps users inside censored domains
access blocked websites by relaying traffic via a network of proxies.
Kaleidoscope uses a novel protocol to disseminate proxy identities over the F2F
trust graph so that each node can only collect limited information about
others' identities. A few malicious nodes, then, cannot discover a significant
fraction of proxies.

This project will produce systems that, if successfully deployed, provide
inexpensive online storage to home users and help circumvent censorship for
millions of affected users.